Coordinated Experimental and Numerical Studies of AutomotiveMultiphase Convective Transport Phenomena: A Ford Motor Company-Michigan State University Collaboration

CTS-9710956 John J. McGrath Michigan State University ABSTRACT This is a GOALI proposal for collaborative research between the Principal Investigator (PI) and Ford Motor Company. The theme of the proposed work centers on developing a capability to analyze fogging and defogging problems. The PI plans to spend the fall semester of his upcoming sabbatical leave to conduct a coordinated numerical and experimental program at Ford and at Michigan State University (MSU). Experiments performed at MSU will provide data for examining and improving Ford's in-house computer software for simulating forced convection with condensation. Ford and MSU have committed resources to develop the experimental facility at MSU.